Modular Direct Writing Process for Multifunctional Continuous Fiber Composite Structures

This award aims to expand the range of materials available for 3D-printed continuous fiber composites and broaden their applications by enabling higher fiber contents and integrated multifunctional capabilities. This will be achieved by developing a modular direct ink writing (DIW) process that provides precise, localized control of material composition and properties during fabrication. By embedding piezoelectric nanomaterials in critical areas, the system will help improve the durability of composite structures. The primary outcome of the project is a fundamental understanding and manufacturing framework for the design and fabrication of multifunctional and structural composites balancing the conflicting requirements for mechanical performance and processability. The project will help strengthen U.S. competitiveness in advanced manufacturing through a vertically integrated education pipeline spanning K–12 through graduate education, coupled with industry engagement through the dissemination of designs, data, and case studies via industry-focused outreach platforms.

This research will conceive and develop a modular coaxial direct ink writing system with a multi-nozzle design that offers enhanced control and flexibility for composite manufacturing. In this approach, functionalized continuous fibers are co-extruded with multiple matrix formulations exhibiting distinct rheological characteristics, enabling targeted adjustment of material composition and processing conditions throughout the process. The system architecture provides independent regulation of key process variables to achieve precise control over filament formation and consolidation, enabling the fabrication of composite filaments with 60-70% fiber content rivaling advanced prepregs. The modular DIW process will be used to create vibration-assisted damage resistant carbon fiber composites in which ZnO nanowires placed in critical interfacial regions act as localized actuators that accelerate self-healing and damage repair under mechanical excitation, enhancing toughness, durability, and service life. This project will generate new understanding of the interactions between material rheology, cure behavior, and process parameters, leading to a manufacturing framework for fabrication of high-strength multifunctional composites, with desired microstructures and interfacial properties.